The Creation of Permanent Mammalian Cell Lines for the Expression of Natural and Genetically-Engineered Products

There is a need in the biomedical and biotechnological industries for a range of systems to serve as sources for the isolation of therapeutic compounds and as hosts for the expression of genetically engineered products. While bacterial, fungal, and insect cells may fulfill some of the requirements for expression of proteins of low to moderate complexity, only mammalian and human cell lines may be capable of the extensive port- translational processing necessary for the function and stability of many complex proteins. The PIs are proposing an in-depth examination of the potential of incorporating cellular and viral oncogenes into primary cultures of human cells as a reproducible and direct method for the creation of established ("immortalized") human cell lines and of the effects of such procedures on product formation and stability and on the growth factor requirements of the resulting human cell lines. The projects described in this proposal will result in the development of a rational and practical framework for the application of oncogenes for the immortalization of various mammalian and human cell types, for the reduction of their growth factor requirements, and for their use as host systems for genetic engineering.